Below-the-Lens Field Emission Scanning Electron Microscope for Secondary and Backscatter Electron Imaging of Large Bulk Samples

Researchers at the University of Minnesota will purchase a field scanning electron microscope with the resolution necessary to answer critical scientific questions about important biological systems. This microscope is capable of examining the surface topology and distribution of surface ligands on large specimens (> 10mm in diameter) at a resolution of 20-50 Angstroms. The first applications of the microscope will be in studies of endothelial cell adhesion, the role of proteoglycans in weakening of tissue microstructure and the role of cytoplasmic dynein in Drosophila melanogaster development. The microscope will provide critical support of strong ongoing research projects into the fundamental biological processes in these systems. The instrument will further greatly facilitate the education, training and research of graduate students and post-doctoral fellows in biological sciences.